Long and Medium-Term Research: Adaptive Parameter Estima- tion and Detection of Correlated Signals in Noise

Krim Long & Medium-Term Research: Adaptive Parameter Estimation and Detection of Correlated Signals in Noise This award is under the Program for Long-& Medium Term Research at Foreign Centers of Excellence, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award for a proposal sponsored by Dr. John C. Proakis of Northeastern University will support a twelve-month postdoctoral research visit by Dr. Hamid Krim at the Laboratoire des Signaux & Systmes, Ecole Suprieure d'Electricit, Yvette, France. Dr. Krim will study estimation/detection with emphasis on array-processing problems. In subspace-based parameter estimation and detection techniques, in a turbulent dispersive medium, applications of high resolution methods for detecting transmitted signals (or estimating signal parameters) prove difficult. Dr. Krim recently proposed a data-based algorithm to estimate the direction of arrival of correlated (coherent) signals impinging on a linear array and has developed a generalized performance analysis specialized to this algorithm. He will extend this work thus: (1) To account for the nonstationarity of the transmitting medium (e.g., seasonal turbulence of the atmosphere) and accommodate for it, he proposes to derive an adaptive scheme that can be easily integrated into his current algorithm; (2) He will use some insightful results of a recent performance analysis to formally derive analytical bounds on the probability of resolving two closely spaced signals impinging on a linear array antenna. The stronger result of an exact probability will also be derived after some additional reasonable assumptions. This research should be of relevance to many applications including radar and sonar. The award recommendation provides funds to cover international travel, dependent's allowance, and a flat administrative allowance of $250 for the U.S. home institution.